Arithmetic Project: Fractional Schemes

The purpose of this project is to conduct a longitudinal study that will investigate, over a period of two years, teh constructive paths that children generate when solving problematic situations that deal with fractional numbers, and the communication patterns that they develop in their efforts to explain their solutions. Twelve children will participate in the study when they are in third grade and again when they are in fourth grade. The researchers will develop models of the children's constructive processes in generating fractional numbers and will also develop models of the communication patterns of student-student and student-teacher social interaction. Several research questions form the basis of this longitudinal study: Is children's ability to construct and operate with different composite units essential in the construction of part-whole relations that children can quantify fractionally using the multiplicity of the parts in the whole? Does conventional symbolization of fractions require a priori developmental constructive processes of the concept of fractions before it becomes meaningful to a child? Do children generate their own algorithms to operate with fractions? Are these algorithms similar to the conventional ones? What do children gain cognitively from social interaction and under what circumstances? What aspects of social interaction contribute to children's advances of their fraction concepts? Are there differences in the role of social interaction depending on the child's age? The results of this project will contribute to the understanding of 1) children's conceptualizations of fractions over a long period of time (two years); 2) the influence of their knowledge of natural numbers on the constructive development of fractional numbers; 3) the role of social interaction (with peers and teacher) in the construction and evolution of children's concepts of fractions; 4) the cognitive demands required to symbolize concepts that had been developed mentally and verbalized using natural language.